Mathematical Sciences: Chromosome Geometry and Chromosome Aberrations

9302704 Sachs The investigator models chromosome aberrations in live mammalian cells, emphasizing implications for large-scale chromosome geometry and for the biology of ionizing radiation damage. The study entails developing computer algorithms, explicitly solving stochastic process models, and collaborating with various experimental groups. Production of chromosome damage (for example, illegitimate recombinations, involving the exchange of fragments between two different chromosomes) after induction of DNA double strand breaks during the interphase part of the cell cycle is analyzed, using probabilistic models for DNA geometry, motion, and reactions at the macromolecular level, in particular polymer models for large-scale chromosome structure and motion. Comparisons of the effects of densely ionizing radiation to those of sparsely ionizing radiation, relevant to chromosome geometry and to biological dosimetry, are made. Statistical questions that arise when very detailed experimental information about specific individual chromosomes is made available by modern fluorescent labeling techniques are answered by extending already developed Monte-Carlo simulations based on previously analyzed biological models. Understanding how ionizing radiation damages chromosomes is important in understanding cancer induction by radiation, understanding how to cope with radiation accidents or waste, and improving tumor radiotherapy. Such understanding requires geometric information about the chromosomes in a live human cell; conversely, information about radiation damage contributes to understanding chromosome geometry, which is of fundamental biological importance. While much effort has been devoted to sequencing the DNA in chromosomes and to modeling local geometry of chromosomes, quantitative geometric models of the larger scales of main interest in analyzing radiation produced chromosome aberrations are just now being developed, by the principal investig ator and others. The project combines standard information on the physics of ionizing radiation with these new biological models of chromosome geometry to analyze how the damage is formed. In particular, preliminary mathematical investigations and a literature search show that, due to geometric effects, densely ionizing radiations, such as alpha particles from radon daughters, make a larger fraction of certain specific kinds of damage (e.g. centric chromosome rings) than other kinds of chromosome damaging agents, including sparsely ionizing radiations such as x-rays. This "signature" of densely ionizing radiations should help in realistic assessments of radiation hazards and will help in understanding chromosome geometry. ***